The New Microscopy: Novel Characters and the Importance of Morphology in Phylogenetic Analysis, January 4-8, 2005, San Diego, California

We are requesting funding to conduct a symposium on "The New Microscopy: New Characters
and the Importance of Morphology in Phylogenetic Analysis," at the annual meeting of the
Society of Integrative and Comparative Biology (SICB) and American Microscopical Society
(AMS) in San Diego, California, January 4-8, 2005. Recently, microscopy, especially
confocal laser scanning microscopy, has been used with immunofluorescent - targeted
tissues and cells to visualize the internal morphology of whole organisms. These
techniques have dramatically increased the amount of relevant data for studying new
characters for metazoan phylogeny. Many of these characters have come to light because of
a productive marriage of classical morphology and modern molecular biology in
immunocytochemical studies of the nervous system, musculature, and tracing of cell
lineages during embryological development. Because research centered on the phenotype of
metazoans is still relevant in the age of molecular sequencing the symposium will
emphasize the importance of morphological data in phylogenetic analysis and will present
recent examples of studies showing how morphological evidence is playing a key role in the
reconstruction of metazoan history.